Nuclear Physics and Its Applications to Astrophysics

9420470 McKeown Research will be carried out in high energy electron scattering with the foals of determining the spin and flavor structure of nucleons, observing manifestations of quark degrees of freedom in quasielastic scattering from nuclei, and testing the hypothesis of color transparency in nuclear reactions. Additional experiments will be carried out with high energy photons and high energy protons to study the onset and manifestation of quark degree of freedom, and the up- down-antiquark distribution in the nucleon. Low energy studies will be carried out with beams of light ion to study reactions of importance in understanding stellar burning of helium, big-bang nucleosynthesis, and the so- called solar neutrino deficit problem. Theoretical studies will be carried out in support of these experiments and in other forefront areas including: Monte-Carlo shell model calculations, fusion reactions, pion interferometry, and coherent- and squeezed- state pion emission. Education of graduate students and postdocs is a strong component in every aspect of this umbrella grant to operate the Caltech Kellogg Laboratory. ***